Topics in low-dimensional topology

Abstract

Award: DMS-0104039
Principal Investigator: Darren Long

The proposers plan to continue their work on a variety of
problems bearing on the understanding of the geometric and
topological aspects of low dimensional manifolds. On the
topological side, the areas of study include Heegaard splittings,
unknotting tunnels and related topics; the geometric side deals
with issues related to orbifolds, the construction and melding of
surface subgroups, developing an understanding of higher
dimensional hyperbolic manifolds, as well as some interactions
with other areas, for example algebraic number theory.

Manifolds play a central role in physics, mathematics and to some
extent in other sciences, since they are objects which on small
scales look like Euclidean space of dimension n. For example,
the space that we live in is a three manifold and space-time is a
four manifold. For this and other reasons, these dimensions have
attracted a good deal of attention in mathematics and physics.
One basic unsolved problem is exactly which manifold is the
correct model for the universe - there has been some speculation
that it falls into the class of so-called hyperbolic manifolds, a
certain class of three dimensional spaces which in some sense
appear to be generic. Cosmological theories about the origins of
the universe put constraints on the shape of space-time and hence
constraints on which manifolds could occur. One of the goals of
this project is refine current methods (which have already ruled
out many possibilities) to narrow the search down further. There
are also other applications of geometric ideas which are less
obvious but still, in fact, directly important. It is no
exaggeration to say that almost any problem which can be
formulated qualitatively can be studied with geometric methods
and as a result the powerful tools developed over the last thirty
years in low-dimensional topology can be brought to bear upon it.